Preparation and Characterization of Quasi-Low-Dimensional Transition Metal Compounds

The PI will synthesize and characterize new transition metal compounds with quasi-low-dimensional properties. Systems of interest include ternary reduced molybdenum oxide phases, phosphate tungsten bronzes and their molybdenum substituted analogs, ternary transition metal chalcogenides, and high temperature superconducting materials. Particular emphasis will be placed on the preparation of single crystal specimens to study the structural and orientation dependent physical properties. Transitions associated with the onset of charge-density waves and/or superconductivity will be sought and characterized. These studies will yield new materials with metallic and high temperature superconducting properties, and provide fundamental insight on the mechanism of electronic transport in quasi-low- dimensional compounds.